Input and Metabolism of Ancient Terrestrial Organic C in a Large River: Importance to the Food Web and Net Ecosystem Metabolism

Abstract

Nina Caraco- 9973925

Preliminary 14C measurements, coupled with ecosystem budgets, suggest that much of the organic C that enters the Hudson River was produced on land thousands of years ago and that this material is metabolized during only a few months of riverine residence. Thus, organic compounds that resisted decomposition for hundreds to thousands of years on land, may be fueling present-day metabolism upon entering the river. If true and general, this phenomenon has implications for both riverine food webs, and for carbon storage and metabolism at the global scale.
The Investigators propose to use 14C analyses to: 1) confirm these preliminary findings for the Hudson River; 2) infer the source of this ancient C by sampling some major Hudson tributaries which drain watersheds with different land uses; 3) expand their observations to several other rivers; and 4) examine key organisms in the Hudson to see if ancient C supports their growth.